International Conference of the Commission on Plant Gene Nomenclature on May 3 - 7, 1993 at the Conference Center of the Rockefeller Foundation at Bellagio, Italy

The current award will support travel to an International Conference on the Commission on Plant Gene Nomenclature. The conference will involve scientists from around the world and will be held in Bellagio, Italy, May 3 - 7. At this conference the commission expects to complete recommendations for a system of plant-wide designations of sequence plant genes. At the conference, the commission will also discuss plans for establishing a Plant Gene Registry to serve as a clearing-house for the naming of newly sequenced genes, and for developing a database of sequenced plant genes, including cross-references and eventually electronic links to sequence libraries and to databases of Arabidopsis, maize, of other plants as those are develope, and to genetic databases of other organisms.